PRIME: Promoting Reflective Inquiry in Mathematics Education

The PRIME: Promoting Reflective Inquiry in Mathematics Education partnership includes Black Hills State University, Technology and Innovations in Education (TIE) of the Black Hills Special Services Cooperative, and the Rapid City School District aimed at improving achievement in mathematics for all students in Rapid City Schools with a particular goal of reducing the achievement gap between Native American and non-Native American students. The project seeks to improve the professional capacity and sustain the quality of preK-12 inservice teachers of mathematics in Rapid City School District and student teachers of mathematics from Black Hills State University in order to provide effective, inquiry-based mathematics instruction. Objectives include reducing the number of high school students taking non-college preparatory mathematics, increasing the number of students taking upper level mathematics, and increasing student performance on college entrance exams. The project provides 100 hours of professional development in a combination of content-based workshops at the district level and building-based activities involving modeling of effective lessons, peer mentoring, and coaching, and lesson study. Mathematics education and discipline faculty from Black Hills State University are involved with district-wide professional development activities. A cadre of building-based Mathematics Lead Teachers convene building based learning teams comprised of mathematics teachers, mathematics student teachers from Black Hills State University, school counselors, and building administrators to identify key issues in mathematics curriculum and instruction.